AGEP: Alliance for Graduate Education in Mississippi

The Alliance for Graduate Education in Mississippi (AGEM) proposes to
continue and expand its comprehensive, state-wide consortial program for enhancing the entry
into and successful completion of minority students in STEM1 graduate programs. AGEM will
continue to be led by the University of Mississippi (UM) and will involve the three other Ph.D.
granting universities in the state2 and informal partnerships with several regional colleges
(including several HBCUs3). The program will build upon the solid accomplishments of the first
round of funding and on the record of collaboration between institutions. Because the population
of Mississippi is 37% African-American and because there are several HBCUs in this region, a
primary focus of AGEM is the training of African-American graduate students, with an emphasis
on preparing these students for academic careers in STEM areas. UM has made a major
commitment to increasing the access of its graduate programs to minority students. UM,
working with its partnering institutions, has aligned resources and has coordinated the current
partnership to create a comprehensive approach to the recruitment, mentoring, retention, and
degree completion of minority students, with counseling aimed at encouraging academic careers.
Thus the entire program addresses the broader impacts imperative of the NSF AGEP program.

The specific goal of the first five-year grant was to triple the number of minority students
who received STEM doctoral degrees (triple, as compared to the previous five-year baseline)
from the four doctoral-degree granting institutions in the state. From our baseline of 13 minority
STEM PhDs produced from 1993-1997, the AGEM program has seen an increase to 48 minority
STEM doctoral graduates produced from 1998-2003. Another goal of the AGEM program was
to bring about a systemic change in attitudes of faculty, administrators, and students with regard
to minority pipeline issues. Evidence is presented for such systemic changes. The current five-
year program has made a significant start toward enhancing minority student success in STEM
graduate education. Continuation of the mission is imperative. A thorough analysis of
programmatic successes, as well as an analysis of those academic disciplines where more can be
done, has been conducted. New strategies will be presented to address targeted areas.

The intellectual merit criterion of NSF is met via the research produced by the students
as they pursue their degrees, by the future research produced by these doctorates when they enter
the professoriate or other research positions, and by our studies of the factors that lead to success
for underrepresented minorities.